Travel to Attend: Eighth National Heat and Mass Transfer Conference (India); Visakhapatnam, India; December 29-31, 1985

Travel support is provided for a participant at the 8th National Heat and Mass Transfer Conference in India.